SBIR Phase I: Novel Linearizer for Wireless Integrated Circuits

This Small Business Innovation Research Phase I project aims to develop methods for wireless integrated circuits. The linearization method can be summarized as a "bad amplifier" is added to a "good amplifier" to form a "much better amplifier." This new technology enables complete implementation on a single integrated circuit, leading to cellular radio and wireless systems with lower cost, smaller size, and smaller batteries. Competing technologies are not applicable to radio receiver designs and not suitable for integrated circuit implementation.

The target market is primarily cellular phones, at 300 million units per year. Commercialization feasibility and strategies will also be evaluated for target markets.